III: Small: MapReduce Workload Management

Researchers and decision makers in diverse fields such as
fraud detection, genome sequencing, and datacenter
management need to process many terabytes of data every day.
Many fields are turning to MapReduce systems to process such
growing datasets. Consequently, the relatively young MapReduce
ecosystem has to support complex workloads that include
declarative queries for report generation, MapReduce
programs for machine learning tasks, and large job workflows.
Furthermore, elastic and pay-as-you-go cloud platforms pose novel
challenges and opportunities for MapReduce workload management.

This project is building the Hadoop AutoAdmin system for
automating MapReduce workload management. To the PI's knowledge,
Hadoop AutoAdmin is the first system to address this challenging
problem that will become increasingly important as a broad class
of users adopt MapReduce. Hadoop AutoAdmin has three research
thrusts. The first thrust is to understand and characterize the
behavior of MapReduce workloads based on a comprehensive empirical
study involving workloads and data from multiple application domains
as well as different cluster configurations on the cloud. The second
thrust is to develop an easy-to-use and efficient warehouse to
store, retrieve, and visualize the diverse forms of workload
monitoring data. The models and insights from these activities will
drive the third thrust of developing end-to-end algorithms for
workload management.

This project can have significant impact in areas of national
importance like security and healthcare that are inundated with
data. Hadoop AutoAdmin will improve worker productivity, system
utilization, and cost-effectiveness of cloud platforms. The
technical contributions will be disseminated broadly and the
system released publicly.